Mathematical Sciences: Problems in Forcing

With this continuation of DMS-8716037, Dr. Stanley will explore problems in Disabled Forcing, minimalizing the universe without constructing Zero-sharp, a converse to Morley's Omitting Types Theorem, and Iterating Mathias Forcing beyond Aleph-two. These are topics on the frontier of modern set theory, a subject which underlies all of mathematics.